CAREER: Teaching and Assessing Conversational Programming Skills

This project aims to serve the national interest by advancing the technical literacy of the future workforce. Conversational programming is the ability to communicate about technical computer science (CS) topics at a high level and such knowledge adds value to the technical literacy of students who will be entering the workforce as professionals in a technologically advanced world. Conversational programming is popular among non-computer science (CS) majors who are taking CS courses and preferred over taking CS programming courses. Conversational programming is not well-supported in most curricula though, and these non-CS learners want to understand CS applications and the benefits of programming without becoming an expert in any one programming language or programming in general. Advancing technical literacy is of high importance even for those who will not enter the CS workforce. A novel instructional approach, Purpose-first Programming, has been proposed as a way to teach conversational programming skills to novice learners. This project will evaluate the efficacy of Purpose-first Programming to support conversational programmers to meet their learning goals. To achieve this objective, the project will first work with instructors to identify best practices in the creation of Purpose-first Programming lessons and then build AI-supported tooling to support instructors to develop such lessons for any programming application area.

This research will advance scientific understanding in multiple ways: (1) advance understanding of how to teach learners with limited programming background about authentic programming application topics, (2) expand knowledge of how to design effective assessments for general education of computing learners, (3) advance new methods to support instructors in creating effective instructional materials to broaden the reach and impact of CS and computational literacy. The project will develop novel assessment approaches to measure high-level concepts about computing’s applications, feasibility, and processes and then apply them to build measures across multiple programming application topics. Finally, the impact of Purpose-first Programming lessons on the development of conversational programming skills will be measured in both lab and classroom settings, using assessments and curricula developed in prior stages of the project. Such an iterative approach to advancing knowledge around learner development and instructor effectiveness has applicability across other technological literacy areas to advance the nation and the nation’s future professionals.

The Faculty Early Career Development (CAREER) Program is a National Science Foundation (NSF)-wide activity that supports early-career faculty who have the potential to serve as academic role models in research and education. This CAREER project is supported by NSF's Improving Undergraduate STEM Education (IUSE) program. The NSF IUSE: EDU Program supports research and development projects to improve the effectiveness of STEM education for all students. Through the Engaged Student Learning track, the program supports the creation, exploration, and implementation of promising practices and tools.